Modern Biophysical Principles and Instrumentation

*** 9802469 This grant will support the development of a novel set of laboratory modules for undergraduate physics laboratories. The modules will emphasize several aspects of biophysics, showing how physical principles are realized in biological systems. They include: tracking of diffusing particles in solution; the forces on organelles; visual processing by the fly. Those interested in learning about these modules, for use in other schools, can attend a hands-on workshop at the host institution. ***